Southwest Regional Workshop on New Directions in Dynamical Systems

The conference is designed to provide a forum for
specialists in Dynamical Systems and bordering disciplines
to meet, exchange ideas and present their research. The
field of Dynamical Systems is acquiring increasing importance
because of the connections to other disciplines. Some of these connections
have been developed over the past, and there are new applications that are
constantly found. Traditionally Dynamics has been related to
Analysis, Geometry, Number Theory, Differential Equations.
More recent applications are found in molecular biology,
population dynamics, theory of communications and economical sciences.
Some examples include such recently
established and still emerging directions of influence as nonlinearity,
chaos, complexity, information flow, internet and self-similar data traffic.

The conference continues the tradition of the Southwest Dynamics meetings
of which it will be the fourth Southwest Dynamics Workshop.
The previous three conferences took place in
Austin (U. of Texas, 1994), Tucson (U. of Arizona, 1996) and
Denton (U. of North Texas, 1997) respectively. The meeting will take
place on the main campus of the University of Southern California
on 17--19 November 2000. There will be several 1 hour plenary talks
and a larger number of more technical 30 minute talks.
Most of the participants will come from the Southwest and
Northern Mexico and will include a considerable number of
postdocs and graduate students in dynamics an adjacent scientific
areas.